Laboratory for High-Resolution Dynamic Image Processing and Visualization

This infrastructure award is for the development of an Imaging Laboratory that supports research in both dynamic imaging and in the processing of imaging data. Specific research projects supported by this laboratory include studies of human visual perception, video compression, three dimensional motion analysis, image reconstruction, adaptive filtering, and stereo vision. The award provides four years support for both equipment and maintenence.